Protein Surface Mutations: Denatured State Stability Effects

9304751 Bowler The research to be undertaken focuses on the role of the denatured state of a protein in modulating the thermodynamics equilibrium between the native and denatured state. Mutation at highly solvent-exposed amino acids on the surface of iso-1- cytochrome c is proposed as a means of probing the energetics of the denatured state with reduced interference from native state energetic relative to mutation at buried amino acids. Hydrophilic to hydrophobic mutations at such sites will be used to test the prediction of heteropolymer theory that such mutations should stabilize the denatured state. Hydrophobic to hydrophilic surface mutations will also be investigated to see if they have the opposite effect on the denatured state energy. Histidines are believed to ligate to the heme of cytochrome c in the denatured state. Using mutagenesis methods to vary the sequence position of the histidine we will attempt to modulate the size and shape of the denatured state. The thermodynamics of all mutants will be characterized by both guanidine-HC1 and thermal denaturation techniques. A reversible disulfide mutation method and Fourier transform infrared spectroscopy will be used to directly assess the impact of our mutations on the denatured state of the protein. %%% Understanding the factors that stabilize the folded state of a protein relative to the unfolded state is a central issue in Biochemistry. Being able to rationally control the stability of a protein would be of great importance to the pharmaceutical industry which is increasingly developing protein pharmaceuticals. The work to be undertaken will explore methods of selectively perturbing the unfolded state of a protein, by focussing on mutation of amino acids that are exposed on the surface of a protein. The work will be carried out with the protein iso-1-cytochrome c which will be isolated from Baker's yeast. Standard thermal and chemical methods will be used to characterize the energy requir ed to unfold the mutant forms of the protein. Two methods, reversible disulfide mutation and infrared spectroscopy, will be used to evaluate the degree to which stability changes originate from the unfolded state of the protein. These experiments have the potential to provide methods of stabilizing or destabilizing a protein which do not affect the folded structure of a protein and thus would have minimal impact on biological activity. ***